CISE Research Infrastructure: MSI: A Research Infrastructure for Integrated Quality of Service Management in Multimedia Computing Environments

EIA-9972883
Elmagarmid, Ahmed K.
Ghafoor, Arif
Purdue University

RIA: MSI: A Research Infrastructure for Integrated Quality of Service Management in Multimedia Computing Environments

Purdue will conduct an integrated research project in multimedia. Areas of research are a multimedia research testbed, QoS management for networked multimedia, distributed multimedia database management, integrated security at both user and network levels, and media capture and presentation. Motivating applications in veterinary medicine, nuclear engineering and Purdue OnLine, a course delivery system are an integral part of the project. Purdue will enable increased participation of under-represented groups through a summer course in the research areas for undergraduates from HBCU's.